U.S.-Japan Cooperative Research: Search Games on Weighted Graphs and their Applications

9416946 Ruckle This award supports a three-year cooperative research project between Dr. William Ruckle of Clemson University and Dr. Kensaku Kikuta of Toyama University. The objective of this cooperative research project is to study search games on weighted graphs and their applications. Some of their activities will be to (1) construct various search models on weighted graphs; (2) find formulas for solutions to games on certain kinds of graphs; (3) find methods to reduce games on complicated graphs to games on simpler graphs of less developed and developing economies; (4) find methods to compute approximate solutions; (5) find upper and lower bounds to the value of certain games on graphs; and (6) reduce the complexity of searches. This proposal brings together research scientists from two countries working on applied mathematics. By combining their expertises, the two groups can achieve a deeper understanding and more rapid progress than can either group alone. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***